ROW: Complementary Pseudomorphic Heterojunction Bipolar Transistors

Preliminary research leading to the development of monolithic complementary pseudomorphic III-V compound heterjunction bipolar transistors on InP substrates is proposed. The novelties in proposed approach are the use of two different material systems for achieving optimum pup and npn HBTs on the same substrate and the use of InP substrates which makes the proposed complementary HBTs integratable with optoelectronic devices. During the time covered by the Research Planning Grant, the necessary theoretical development that will lead to guidelines for the design of the optimum complementary HBT structures will be accomplished. Experimentation leading to the production of the complementary HBT structure will be initiated with emphasis on the InA1As/InGaAs structure. In addition, with material provided by the Naval Research Laboratory, in Washington, DC demonstration of a functional pnp InGaAs/InAlAs HBT will be accomplished. Although, initial efforts will emphasize InP lattic match material systems, future plans are to expand to pseudomorphic layers in material systems with more promising characteristics.